Conference: Fifth Meeting of the Society for Research on Biological Rhythms, May 8-12, 1996, Jacksonville, FL

9515463 Edgar The Society for Research on Biological Rhythms will provide support for 15 promising undergraduate and graduate students to attend their bi-annual meeting, May 8-12, 1996. Plenary lectures, symposia, workshop sessions, tutorials and poster presentations will provide trainees with valuable access to the latest research on circadian rhythms in plants and animals.